Telescopes for Instruction in Introductory Astronomy

The college is procuring two Schmidt-Cassegrain telescopes, primarily for introductory astronomy courses. A 12-inch telescope is being mounted permanently in an 18-foot dome on top of the Strawbridge Observatory and an 8-inch telescope is being tripod mounted and is, therefore, portable. By incorporating observations with these two telescopes, the college is dramatically increasing the opportunity for its students to observe how astronomy is done, as well as to learn about the importance of careful scientific observations and measurements.